NSF Industry/Multi-University Materials Handling Research Center

This project initiates the first year of a five-year continuing award to Florida Atlantic University to join with the University of Arkansas and the University of Cincinnati in merging with Georgia Institute of Technology's Industry/University Cooperative Research Center for Material Handling. The university has developed the company support to be added to the Center's industry base. The research projects approved by the new consolidated Industry Advisory Board are "Carton Design Intelligent Systems", "Container Inventory Reduction in Distribution Systems", and "Modeling and Analysis of Printed Circuit Board Manufacturing." The researchers are experts in their fields and have the capability and facilities to participate in the new merged Center. The Program Manager recommends Florida Atlantic University be awarded $50,000 for the first year of a five-year continuing award. Near the end of each 12 month period the Program Manager and/or the Director of the Engineering Centers Division will review the progress of the center on a number of criteria, including the following: (1) the extent to which the university-industry interaction and collaboration is developing; (2) the extent to which the support base is expanding; (3) the extent to which a robust research program is developing. If the review is satisfactory, the Program Director will recommend support of the next period of this continuing grant.